Mathematical Development of Large Eddy Simulation of Turbulence

The investigator studies the accuracy and reliability of large eddy
simulation (LES) of turbulent flows. The research on LES includes
modeling, analysis, algorithm development, numerical analysis, and
computational testing. The recent mathematical development of approximate
de-convolution models for turbulence shows this approach to be an
excellent path for developing accurate, stable and predictive LES models.
The research on finding better LES models is thus based on the approximate
de-convolution framework. The research on matching algorithms to models
uses an improved understanding of models and their numerical analysis to
develop better algorithms. The investigators research studies reliability
of simulations by developing analytical foundations of models and
algorithms directly from the Navier Stokes equations and by computational
estimation of model sensitivity. Training Ph.D. students properly to
contribute to this area is a large part of the proposed effort.

The accurate and efficient simulation of and extraction of reliable
information from turbulent flows is a central computational challenge in
many important applications including global change estimation, biomedical
device design, energy efficiency improvement, optimization of industrial
processes, safety estimation of the new generation of nuclear reactors,
pollution dispersal and abatement and security issues involving dispersal
of biological and chemical agents. All the above applications require
accurate and reliable numerical simulations of complex flows and thus
progress in these applications needs efficient and accurate models of
turbulence and fast and reliable numerical methods. This project involves
the development and testing of models for turbulent flow which can address
essential difficulties in the modeling and simulation of complex flows.
This research studies the physical and mathematical foundation of the
models as well as efficient computational methods for performing numerical
simulations of the models. The aim of the research is to advance the
efficiency, reliability and accuracy of the simulations of turbulence
which form a core difficulty in these, and many other, applications.